A Reactive Approach to Model Zeolite Synthesis

Zeolites are materials with pore sizes that can accommodate small molecules, and they are important materials for catalytic processes and molecular separations. Zeolites display a wide variety of chemistries and morphologies, so the rational design of these materials is crucial to create and optimize new zeolite structures. Structure directing agents are molecules that guide the zeolite synthesis process towards well-defined structures. This research project will develop a methodology for the rational design of sol-gel synthesized zeolites prepared under the influence of structure directing molecules. The researchers will investigate using reactive molecular modeling to study sol-gel processes in silica- and alumina-based systems, with and without structure directing agents. The project also includes some collaborative activities with research groups in Germany. The research project serves as a training ground for graduate and undergraduate students to perform cutting edge research. The researchers will also develop a new freshman seminar on "Cyber Engineering New Materials: What is it and what do I need it for?" This seminar course will introduce undergraduate students to modern computational materials design. The researchers also will offer a summer school / workshop on novel simulation methods to benefit more advanced students.

This research project will focus on two types of zeolites, ZSM-5 and LTA, and several structure directing agents (e.g., tetraalkylammonium ions and sodium hydroxide). The goals of this work are to : (1) model building and bulk simulations of zeolite precursors/precursor mixtures to validate and optimize the reactive model and enable studies of the morphology of early zeolite structures; (2) perform simulations of precursors and their reactions in structure directing agent-like confinement. The influence of structure directing agents on morphology formation will be studied and compared to existing experimental data. The interplay of structure directing agent structure arrangement and reactivity will be elucidated; and (3) simulate structure directing agent molecules in zeolite-like structures. Preformed zeolite structures will be simulated and their interactions with structure directing agents will be analyzed. These simulations will be particularly relevant for understanding the calcination step in which the structure directing agent is removed from the final zeolite structure. The thermal and hydrothermal stability of zeolite frameworks will be studied too. Finally, researchers will perform simulations of the complete system, consisting of precursor / structure directing agent / solvent mixtures, to study all stages of the zeolite formation process. Ultimately, the research project will provide insights into the formation conditions of zeolites and obtain a well-tested methodology that can be generalized to describe the formation of other catalytically active materials.